Tracking Electrostatics and Structure at Electrode:Electrolyte Interfaces During Waveform- and Photon-Driven Stimuli

Researchers from Northwestern University are developing optical methods to measure how water molecules and electrical fields alter the electrode surfaces during a chemical reaction. Many important industrial processes rely on chemical transformations that occur where a solid electrode meets a liquid electrolyte. These buried interfaces are difficult to study because the relevant molecular motions occur within only a few layers of water and ions next to the electrode. A central challenge is that some reactions require more energy than the ideal thermodynamic value, and part of this extra energy may come from the reorientation of water molecules before products form. The research team will use laser-based, surface-sensitive measurements to track how interfacial water molecules, ions, and electric potentials respond when electrodes are driven by alternating voltage and/or light of different colors. Their discoveries could improve scientific understanding of electrocatalytic oxidation/reduction reactions and help shape the molecular design rules needed for current and future electrochemical manufacturing. The project will also train students in nonlinear optics, ultrafast spectroscopy, electrochemistry, and data analysis, and thereby contribute to the development of a STEM workforce.

The project will develop and apply phase-resolved second harmonic generation methods to quantify structure and electrostatics at electrode and electrolyte interfaces under operating conditions. The approach will measure the second-order nonlinear susceptibility, the total interfacial potential, the number density of net-aligned Stern layer water molecules, ion surface coverages, and the free energy associated with water reorientation. A new common-path pulse triplet interferometer will be used to determine the absolute optical phase and calibrated nonlinear response without changing between sample and reference materials. Time-dependent measurements will follow water flipping and interfacial potential changes during applied voltage waveforms with millisecond resolution. Visible-pump, second-harmonic-probe experiments will test whether ultrafast photoexcitation of semiconductor photoanodes can drive water reorientation on femtosecond to picosecond timescales. The project will use metal and semiconductor nanolayer electrodes prepared by physical vapor deposition and thermal oxidation, with emphasis on model systems relevant to the oxygen evolution reaction. These studies will test how stimulus magnitude, duration, cycling rate, light wavelength, and ion identity control interfacial water alignment, electric fields, and free energy. The results will provide molecular benchmarks for theories and simulations of charged interfaces and will help define when linear response descriptions of electrochemical double layers fail under dynamic external stimuli.